RUI: Generalized Mechanical Efficiency Analysis of Heat Engines

This project is aimed at developing new conceptual and mathematical methods for the general analysis of mechanical efficiency and performance limitations of reciprocating kinematic heat engines. The project is motivated by two recent discoveries which, taken together, indicate that realistically complex engine mechanisms can be treated in mathematically closed form fashion. The discoveries arose from prior work on establishing mathematically explicit and general limits on the mechanical efficiency of kinematic engines which are analogous to the well known Carnot limits on thermal efficiency. The prior work was restricted to highly idealized engine mechanisms models. The present project makes use of a new abstract approach to model engine mechanisms which allow significant relaxation or essentially complete removal of the idealizations and restrictions of the earlier work. The results of the proposed new work will be more faithfully representative of actual practice while retaining a broad general range of applicability. This will not only provide more detailed insight into the specific practical problems involved in extracting useful work from heat engines, but it will also furnish a new ability to address global problems important to practical heat engine design and development such as the optimal matching of thermodynamic cycles and engine mechanisms.